Engineering Experience for High School Students

The University of Maine will initiate a three-week, residential, Young Scholars project in engineering for 24 students entering the 11th and 12th grades. This summer program will emphasize the study of logic systems related to the design and analysis of digital circuits. Students will complete engineering research projects, tour industrial sites, receive an overview of career opportunities in five engineering disciplines, and learn about ethics in an engineering setting.